Workshop on Cognitive Activity in Social and Physical Environments

The goal of this workshop is to explore the new emerging view that the mind must be viewed in its social and physical context. In this view, the processes and representations of the internal cognitive system are tightly coupled with processes and representations in the external world. In other words, cognition is not about the mind in isolation, but the mind tightly coupled with the external world that consists of the natural environment, designed artifacts, the social environment, the organizational environment, and the cultural environment. The workshop will convene representatives of a number of specific lines of work that converge on this view, including situated action, distributed cognition, cultural psychology, everyday cognition, activity views of the mind, the study of errors, and studies of applications like human-computer interaction and computer-supported cooperative work. Such disciplines as artificial intelligence, psychology, linguistics, anthropology, and philosophy are all active in these debates. The outcome will include a report for the National Science Foundation's planning for a Cognitive Science Initiative.